CAREER: Implantable Medical Devices: A Process-Modeling Approach to High Reliability Miniaturization

9702285 Sitaraman Advances in medical care have generated a growing market for advanced microelectronics assemblies. Currently, the most demanding electronics packaging products for medical use are implantable cardiac defibrillators and pacemakers. These products necessitate a highly reliable electronics devices with guaranteed performance. This research project aims to develop comprehensive thermo-mechanical reliability models that would take into consideration the fabrication and assembly processes of microelectronics devices. The outcomes of this study could yield a new generation smaller-size and lower-weight cardiac defibrillators without compromising reliability. The research activities will be balanced by an education plan to improve quality of graduate and undergraduate education at Georgia Institute of Technology. This award will support multidisciplinary research and education activities for faculty in their early academic career years.